Comparative and Developmental Analysis of Surface Domains

This study will address the regulation of cell form and the segregation of surface domains in a model unicellular system, Euglena. In Euglena, cell form is maintained by a peripheral membrane skeleton that is bound to the plasma membrane by an integral membrane protein, IP39. The interactions between IP39 and the two major membrane skeletal proteins (articulins) will be dissected by isolating the binding region, evaluating the significance of phosphorylation of that site, and determining its amino acid sequence with a combination of partial peptide sequencing and deduction of amino acid sequences from cDNA clones. The 80 and 86 kD membrane skeletal proteins (articulins) will be radiolabeled and fragmented to identify their binding domains to each other and to IP39. Partial peptide sequencing will be correlated with the deduced amino acid sequences now available from the cDNA clones of both proteins. A genomic library will be constructed and the cDNAs will be used to identify clones with 80 and 86 kD encoding regions. Regions 5' (upstream) to the cDNAs will be of particular interest as they may contain sequences specific for regulating the synthesis of proteins of the cell surface. A 205 kD protein associated with the membrane skeleton will be further assessed, as it has immunoidentity and a size similar to the vertebrate membrane skeletal proteins. C-DNA clones for the 205 kD proteins will be selected and sequenced for comparative studies. Targeting signals for flagellar specific components (mastigonemes and the paraxial rod) will be sought from analysis of amino termini obtained from sequence analysis of cDNA clones for paraxial rods and mastigoneme proteins. Regions upsteam to the cDNAs will be sequenced using clones from the proposed genomic library in order to identify regulatory signals specific to flagella-localized proteins as distinguished from the cell surface restricted articulins and IP39. The long-term goal of this research is to understand the molecular and biochemical bases for generating and maintaining cell form and for targeting proteins to areas critical to generating cell form.